Special Minority Award (Physics) to Richard Astur

This Special Minority Award provides a third year of support for Richard Astur, a graduate student at Michigan State University. The award will allow Mr. Astur to continue work on his thesis project in particle physics at Fermilab. This award is an integral part of the strategy of the National Science Foundation to strengthen and increase minority participation in the field of physics.